Next Generation Data Mining Summit: Dealing with the Energy Crisis, Global Warming, and Transportation Challenges

This project supports the participation of researchers in data mining and machine learning, as well as domain experts, at the "Next Generation Data Mining Summit: Dealing with the Energy Crisis, Global Warming, and Transportation Challenges" (NGDM 2009) from September 30 - October 2, 2009 in Baltimore, MD. Through invited talks, competitively-assessed papers, panel and audience discussion, the summit encourages the participants and larger community to cooperatively define data mining problems and share resources so as to advance solutions to long-term sustainability challenges.